SGER: Exploratory Investigation of Modular Ontology Languages

Many distributed data and knowledge base applications call for a structured
approach to collaborative construction of large ontologies
(conceptualizations of objects, properties, and relationships between
objects of interest in specific domains). This high risk, potentially high
impact research is aimed at addressing the need of such applications for
ontology languages, distributed reasoning algorithms, and software tools
that support rapid collaborative assembly and use of complex ontologies
through partial and selective reuse of independently created ontology
modules. A family of description logics (DL) based modular ontology
languages, namely Package-Based Description logics (P-DL) being developed by
the researchers to explore the language features, syntax, and semantics of
package-based partial order ontologies (PPO). The resulting tools will be
evaluated in the context of collaborative construction of animal trait
(phenotype) ontologies needed for comparative genomics. Anticipated results
of the research include open source software for rapid, collaborative
construction of PPO (and eventually, P-DL ontologies). The resulting tools
can potentially transform distributed data and knowledge base applications
in the same way in which the World-Wide Web transformed the construction,
sharing and use of hyperlinked documents and Wiki has transformed
encyclopedia construction. Broader impacts of this research include enhanced
opportunities for research-based training of graduate and undergraduate
students, enhanced interdisciplinary collaborations, increased participation
of under-represented groups, and engagement of the broader scientific
community in developing and using increasingly sophisticated collaborative
ontology development tools. The project Web site (http://www.cs.iastate.edu/~honavar/ailab/projects/modularontologies.html) provides access to the information on the project, publications and prototype software tools.